Fifth Conference on the Neurobiology of Learning and Memory,October 22-24, 1992, U of California, Irvine, CA

This action is provide support for the Fifth Conference on the Neurobiology of Learning and Memory to be held in Irvine, CA on October 22-24, 1992. The general theme of this meeting, "Brain and Memory: Modulation and Mediation of Neuroplasticity" is timely and of high importance to the field. State-of-the-art lectures will be given by internationally recognized investigators highlighting four exciting areas. First, the relationship between emotion and memory will be examined. The findings and theories examined in this session have implications for understanding the role of motivation, emotion and stress in learning and memory. Second, recent findings and theory concerning age-related changes in brain and memory in animals and humans will be explored. The third session will focus on the plasticity in the cerebral cortex, which has received only limited attention to date but has long been recognized as the main processing structure and probably the ultimate forebrain storage site of memories. Finally, the relationship between long-term potentiation and memory will be probed. The format of this conference will insure cross-fertilization of ideas on fundamentally important questions on how we learn and remember. Some of the funds are to used for support of selected graduate and postdoctoral students who might overwise not be able to attend this outstanding conference.***//